Generic Architecture for Spatial, Spectral and Temporal Compression

9361751 Farrelle This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This Phase I project studies the feasibility of a generic architecture concept utilizing a library of fundamental building blocks which can be combined to compress multiple image sources. Potential building blocks include predictors, DCTs, DSTs, quantizers, entropy coders, and buffers. The project is determining the feasibility of programming a commercially-available digital video processor chip developed for real-time video imagery for compression of other types of imagery.***